Convergence of Frontal Eye Field and Medial Cerebellar Nucleus (Fastigial) Projections in Brainstem Preoculomotor Nuclei

We know several of the areas in the brain which control eye movement but we know little about where they are inter connected for the eyes to move in a coordinated and responsive fashion. To study one such interconnection two sites in the brain will be injected with two different neuroanatomical tracers. The experiment will test if the cortical frontal eye field is connected to the same cells as the cerebellar fastigial nucleus projections. Electron microscopy will be used to prove if the identified axons terminate on the same neuron and if so what the synaptic relationships are. The study should increase our knowledge of how and where eye movement is controlled.